An All-transmitting f/4 Camera for the Magellan Imaging Spectrograph

Abstract DRESSLER, A. AST-9618875 Funds will be used to build the camera sub-system of an imaging spectrograph for the first of the two Magellan 6.5 meter telescopes.